Methodologies for Research in Learning and Teaching Science and Mathematics

This is an 18-month cooperative project to convene a group of experts in educational research and related areas to produce a handbook of non-routine research methods in science and mathematics education. The handbook will offer researchers at all levels examples and guidelines for conducting research using various emerging methods.